Introducing Technologically Current Hands-On Laboratory Experiences into the Biology Curriculum

9350766 Buttles This project will furnish previously-impossible laboratory experiences to undergraduates in biology pursuing careers in teaching, health, research, and industry. The emphasis is on learning through student access to instrumentation rather than by observation of teacher-executed demonstrations. With the acquisition of modern equipment for biotechnology, students will be able to culture living cells, isolate cellular organelles and biomolecules, perform intricate analysis of these, and investigate the behavior of cellular components in normal and abnormal states. Phase-contrast microscopes will permit study of structure and function in intact, living cells. In all instances the experiments will foster basic inquiry skills associated with the scientific endeavor and will be models of science as it is practiced in the technological arena. The results will be to provide future teachers with appreciation and understanding of the interdependence of science and technology and to train the all students in skills vital to achievement of their career goals.